Biophotonics: Two-Photon Fluorescent Labels with Enhanced Sensitivity for Biological Imaging

0086944
Perry
Until recently, a fundamental understanding of how to control the position and strength of the two-photon absorption peak or organic molecules was lacking. However, this group has now developed structure-property guidelines that allow for the systematic control of these factors. This has resulted in new chromophores with high fluorescence quantum yields and unprecedented two-photon absorption cross sections (delta) in organic solvents. The principal investigators have been working closely and with Professor Watt Webb of Cornell to understand the design requirements for chromophores for a variety of biological labeling applications to be implemented with two-photon fluorescence laser scanning microscopy (TPLSM). This has provided this team with insight into dealing with problems that have been encountered with existing chromophores, such as low sensitivities and bleaching.